Cosmological Dynamics and Gravitational Lensing

AST 95-29154 PI: Edmund Bertschinger Cosmological Dynamics and Gravitational Lensing This proposal requests funding for several theoretical projects involving dynamics in cosmology. The aims are to develop analytical methods for describing nonlinear gravitational instability and gravitational lensing and to investigate observational consequences of these phenomena. The evolution of correlation functions and the matter distribution within virialized objects will be studied analytically and with numerical models. Local Lagrangian approximations to weakly nonlinear evolution will be further tested and applied. Gravitational lensing theory using Hamiltonian dynamics will be further developed and applied to multiple weak lensing by structures in the universe. Lensing studies will focus on quadruple lenses as possible indicators of the enhancement and modification of primary lens effects.